Hybrid likelihood methods

ABSTRACT

Prop ID: DMS-0505201
PI: McKeague, Ian W.
NSF Program: STATISTICS
Institution: Columbia University
Title: Hybrid likelihood methods

Empirical likelihood is being extended in three directions: to allow
for plug-in estimates of nuisance parameters in estimating equations,
slower than root-n rates of convergence, and settings
in which there are a relatively large number of estimating equations
compared to the sample size. This work is motivated in part
by the need to more effectively compare survival distributions in
clinical trials and cohort studies.
Methods of finding confidence intervals for split points, as
represented by jumps in parametric regression models within
broader semiparametric models, are also being investigated. This
involves developing cube-root asymptotics for hybrid likelihood
methods. A new confidence set is constructed by inverting a
hybrid likelihood ratio statistic. This part of the project is
motivated by an application to the development of a phosphorus
threshold standard for the Everglades. Finally, hybrid likelihood
techniques are being developed for use in HIV vaccine efficacy trials
in which it is important to take into account dependence of the
relative risk of infection on the divergence of infecting HIV viruses.

Hybrid likelihood provides a unified way of looking at techniques
that adapt a nonparametric likelihood based approach in some way, for
example through the use of plug-in estimates for nuisance parameters,
or by the use of a likelihood derived from a working (but not "true")
model. The use of hybrid likelihood has become increasingly
common in recent years and is attractive in many applied areas because
it combines the power of likelihood based methods with a pragmatic
sense of the need to find tractable and easily implemented
solutions to complex statistical problems. The investigator is
extending the scope of hybrid likelihood methods in a variety of
settings. Methodological work is conducted on three specific topics:
empirical likelihood with applications in survival analysis,
confidence intervals for split points with application to the
estimation of pollution thresholds, and comparison of mark-specific
relative risks with application to the detection of
viral divergence in HIV vaccine efficacy trials.